CAREER: Chronically Stable, High-Precision, Multimodal Bioelectronic Platform for Longitudinal In-Situ Interrogation of Peripheral Nerve Injury

Peripheral nerve injuries (PNI) are a leading cause of chronic disability that affects millions of people in the U.S. Understanding long term effects of PNI is challenging because most diagnostic tools, such as advanced imaging, only provide a snapshot in time. The field of bioelectronics may provide new tools to monitor PNI continuously over long times, if certain challenges can be overcome. This CAREER project will design and fabricate bioelectronic devices that integrate into tissue and continuously monitor the progression of chronic PNI over long times. The outcomes of the project could lead to new personalized treatments of PNI. The research team will partner with the Franklin Institute in Philadelphia to launch "Engineering in Medicine" that will engage high school students in biosensor fabrication. Additionally, the project will establish a new bioelectronics curriculum. Overall, this project will develop novel biotechnologies to better understand nerve injury and will inspire a workforce capable of solving challenges in materials science and healthcare engineering.

This CAREER project will support fundamental engineering research to overcome critical barriers of bioelectronics for PNI applications. First, this project will address challenges preventing long-term tissue integration of bioelectronic devices in dynamic nerve environments. An engineered interface will be fabricated to overcome the trade-off between wet adhesion and stability. This design is expected to enable robust attachment to peripheral nerve surfaces over long-term implantation. Second, this project will target the need for continuous biomarker monitoring without sacrificing sensitivity. A biomimetic interface will be developed that supports faithful molecular recognition and active regeneration. Finally, this project will validate the bioelectronic platform in a rat nerve crush model. The new platform will continuously capture multimodal data throughout injury progression and recovery. The sensor outputs will be correlated with nerve function. If successful, this dataset will provide insights into neuro-immune dynamics. The research outcome of this project will motivate data-driven strategies for future therapeutic development.